Enhancing Learning in General Chemistry with Computers

9451521 Tenney The project will use computers to support and enhance the laboratory component of general chemistry to make the subject more relevant and current. The equipment needed for this proposal consists of eight data acquisition and processing workstations. The data acquisition and processing workstations will be used in experiments involving real time measurements of thermochemistry, phase transitions, electrochemistry, pH and potentiometric titrations, chemical kinetics, and oscillating reactions. Using graphical analyses of those data, the student can infer functional relationships among the measured quantities without the tedium of repetitive measurements. Focus will be placed on interpreting and analyzing results. Students will be expected as the course progresses to write their own programs to acquire and analyze their data. The proposed hardware and software has been used in the physical chemistry and the instrumental laboratories for three years. Fully using computer technology in the general chemistry should not only increase the number of students who succeed but also produce students with improved critical reasoning, graphical analysis, and problem solving skills.